Mathematical Sciences: Workshop on Writing Skills for Young Investigators--Atlanta, Georgia, August 17-23, 1991

Technical writing for statistics and probability journals demands a special style and use of writing techniques unique to mathematical sciences. At this mentoring workshop new researchers can acquire these specialized skills from senior researchers who have also served as editors of principal journals in statistics and probabilty.